Integrating Algorithm Visualization into Computer Science Education

Abstract

Proposal 0341148
Integrating Algorithm Visualization into Computer Science Education
Grand Valley State University
Scott Grissom

This project will bring together experienced developers from three institutions to develop a suite of materials for teaching data structures and algorithms using the algorithm visualization tool JHAVE. These materials and the tool will support student work in active, engaged learning outside the classroom. The project will develop new materials and refine existing materials during its first two years, based on formative evaluation by outside reviewers and experiences in the classroom. In the second and third years the project will provide workshops that train faculty on how to use the developed materials and how to create their own materials. Workshop participants will use project materials in their teaching and will contribute to additional evaluation. Expected project outcomes include a published student laboratory manual, a digital library of high quality Web-based visualizations, and an instructor's guide describing best practices in using these materials.